M-I Coupling: Global Scale Imaging of High Latitude Poynting Flux

The investigators will study the role of high latitude Poynting flux in large-scale magnetosphere-ionosphere coupling. The principal means by which energy is transported from the magnetosphere to the ionosphere is by Poynting flux and particle precipitation in the high latitude polar regions. The Poynting flux will be derived by combining magnetometer measurements from the Iridium satellites with electric field measurements from the SuperDARN radar system. The study involves three specific objectives: (1) Establish the principal regions of electromagnetic energy flux by determining the spatial distribution of the Poynting flux; (2) Identify the influence of the neutral wind dynamo by looking for regions of negative Poynting flux; and (3) determine correlations between Poynting flux and other magnetosphere-ionosphere coupling phenomena. The combined data set will be used to calculate the global scale Poynting flux and energy deposition into the atmosphere.